Conference: The Biology and Genetics of Complex Mammalian Traits: September 13-17, 1995: Bar Harbor, ME

9512751 Frankel Recent technological advances in genetic techniques have now made it possible to begin to analyze the biology of complex mammalian traits. The aim of this conference is to bring together researchers with knowledge of different complex trait systems to formulate ideas for defining a realistic strategy for advancing this emerging field. The Jackson Laboratory, a renowned center for genetic research, which will be the site of the workshop. The organization of the workshop will offer the opportunity for the participants to engage in discussions concerning the latest technologies, their own work using these methods, and the potential impact of complex trait analysis on the field of Developmental Biology and Neuroscience.